FRG: Collaborative Research: Applications of Transportation Theory to Nonlinear Dynamics

Proposal DMS-0354729
PIs: W.Gangbo (Georgia Tech), L.Caffarelli (U Texas), L.C.Evans
(U California Berkeley), M. Feldman (U Wisconsin), R.McCann (U. Toronto)

Title: Applications of Transportation Theory to Nonlinear Dynamics

ABSTRACT

This project focuses on the analysis of a collection of variational
optimization and dynamical evolution problems centered around the theme
of optimal transportation --- which enters the dynamical setting
whenever the evolution conserves a scalar locally. The central problem can be
caricatured as follows:Given a distribution of iron mines throughout the
countryside, and a distribution of factories which require iron ore, decide
which mines should supply ore to each factory in order to minimize the total
transportation costs. Here the cost per ton of ore transported from the
mine at x to factory at y is specified by a function c(x,y) --- so the
problem can be formulated as a linear program. However, when the mines and
factories are distributed continuously throughout Euclidean space or
a curved landscape with obstacles --- and the cost is related to the
distance on this landscape, then the problem has a rich structure and
deep connections to geometry and non-linear PDE which have only begun
to be explored. Incarnations of this problem embed in current models for
surprisingly diverse phenomena. Along with basic questions concerning
the structure and qualitative features of optimal mappings, the proposed
research addresses models for front formation in the atmosphere, dissipative
equilibration in kinetic theory, fluid flow, and granular materials and
geometric and dynamical inequalities.

After half a century of mathematical neglect, the past decade witnessed a
revival of interest in optimal transportation, and watched as it blossomed into
a fertile field of investigation as well as a vibrant tool for exploring diverse
applications within and beyond mathematics. The transformation occurred partly
because long-standing issues could finally be resolved, but also because
unexpected connections were discovered which linked these questions to problems
in physics, geometry, computer vision, partial differential equations, earth
science and economics. The time is ripe for a collaborative effort on an
international scale to explore existing connections and unearth new ones, while
simultaneously developing the basic theory of optimal maps and introducing
students and colleagues to the challenges and promise of the field --- thus for
the formation of a focused research group with these goals. The core of our
plan is to arrange sustained interactions between and around members of the
group, who in addition to collaborating scientifically, will work together over
the next several years to create the research environment and manpower necessary
for transportation research to flourish. To achieve this goal, we plan to
organize two workshops on different aspects of the subject. Furthermore, we
plan to share the responsibilities of training graduate students and
postdoctoral fellows, by using funds from the grant to support young
researchers. This unique arrangement will give participants
access to an unusually broad assortment of perspectives and expertise.
Moreover, we believe a three-year nurturing window for young researchers to
learn the subject and become involved --- if continued now --- will ultimately
further advance progress in the field by more than a decade.